Designed Microstructures for Mesophase-Based Carbon Fiber

The objective of this research project is to apply a new experimental understanding of the flow behavior and strong memory of mesophase pitch, guided by rheological analysis, to prepare fiber with well-defined model microstructures that can be examined for the most effective mechanical and thermal performance. Carbon fibers spun from mesophase pitch, a discotic nematic liquid crystal, can be heat-treated to realized highly oriented graphitic microstructures, and thus attain exceptional levels of elastic modulus and thermal conductivity. While this research focuses on mesophase fiber, the results should apply to other carbon materials fabricated by pyrolysis through the mesophase state, e.g., needle cokes for steel making electrodes, thermal absorption tiles for fusion devices, and composites for thermal conductors and braking devices. The research project has a balance between theory and experiment, and will provide valuable findings for the carbon fiber manufacturing industry.